Engineering Research Equipment Grant/UHV Thermogravimetric Analyzer

This grant is to provide funds for the purchase of a Cahn TG 121 thermogravimetric system to be utilized in studies of diffusion and sorption of large organic molecules in pillared clays. Pillared clays are catalytic materials consisting of very regular porous structures with uses in for example, gas oil cracking, methanol conversion to olefins and toluene ethylation. The equipment will be used to study the diffusivity of various organic molecules in pillared clays by low pressure sorption experiments in a Perkin-Elmer TGS-2 UHV thermogravimetric system. The procedure will consist of placing small amounts of finely ground pillared clay in the quartz microbalance, introducing gas into the apparatus and then measuring the uptake. There are no other thermogravimetric systems in the Chemical Engineering Department at USC and this will be of great benefit to the PI's research effort in preparing new pillard materials and for improving the catalytic and sieving properties of pillared clays already in existence. He has already made valuable contributions in this area and this equipment will greatly benefit his experimental efforts.